Enhancing the Computer Science Infrastructure

The first and primary goal of the Department of Mathematics and Computer Science at Spelman College is the production of quality female scientists and engineers. In order to accomplish this goal, a strong research component for academic programs must be built in computer science and applied mathematics. Although Spelman is primarily a teaching institution, they propose to increase the percentage of students involved in research or realistic practical experiences to at least seventy percent of the upper division students (i.e., juniors and seniors) over the next five years. This requires the development of a faculty of adequate size for the student population with strong research and teaching capabilities. The current faculty size is four full-time members. Second, they will develop a computer science program which meets the Association of Computing Machinery (ACM) guidelines for accreditation. Third, they will increase the percentage of students in computer science with an interest in scientific applications through systematic exposure of these students to scientific careers and involvement in appropriate science related activities. Fourth, they intend to separate the mathematics and computer science programs by creating a new Department of Computer Science to house the newly accredited program. To accomplish these objectives, Spelman propose a planning grant (1) improve and expand research efforts in progress in the areas of image processing, and information storage and retrieval; (2) increase the number of courses in Computer and Information Science which have laboratory components; (3) study and modify the curriculum as necessary and desirable to meet the accreditation standards of ACM; (4) expand the course offerings in Applied Mathematics to include relevant topics and techniques for image processing; (5) recruit additional faculty in Computer Science and Applied Mathematics with research interests and performance in the selected areas; and (6) expose students to governmental and industrial environments in which scientific applications of the discipline occur.